Acquisition of a Spectrometer and Detectors for Precision Nuclear Physics Measurements of Neutron Beta Decay

A superconducting solenoidal spectrometer and state-of-the-art detectors
for low energy electrons will be used for a series of high precision
measurements of neutron beta-decay using, for the first time,
Ultra-Cold Neutrons (UCN). In particular the angular correlation (A)
between the neutron spin direction and the electron momentum will be
measured with a statistical precision of < 0.2% and substantially
smaller systematic errors. This represents nearly a factor of five
improvement over the present best measurements in an experiment with
significantly different and considerably smaller systematic uncertainties.

High-precision measurements of the A-correlation in neutron beta-decay
can be combined with measurements of the neutron and muon lifetimes to
extract the u-quark/d-quark weak mixing also known as V_ud -
a key component of the Cabibbo-Kobayashi-Maskawa (CKM) matrix. Improved
measurements of V_ud can provide access to physics beyond the
Standard Model by testing the unitarity of this matrix.